Predator-Prey Interaction at the Cellular Level in a Protozoan System

Investigations of cell recognition in free-living protozoa have, in the past, been limited mainly to mating type recognition in ciliates. One other example that has been partially investigated is the predator-prey relationship between suctorians and their prey. Prey are selected by recognition of surface antigens displayed on the prey's cilia. During proveious work, monoclonal antibodies specific for ciliary antigens of the prey, Tetrahymena, were generated and localized on the prey. The proposed work will utilize these monoclonal antibodies and identify which antigens are responsible for recognition. Inhibition of recognition (and therefore feeding) will be assayed by selectively masking the prey's surface antigens with monoclonal antibodies. In order to characterize the predator's surface receptor that selects prey, monoclonal antibodies directed against the suctorian will be used to block receptors in a set of assays of feeding inhibition that are complementary to the assays mentioned above. Binding of all monoclonal antibodies that are important in recognition/receptor function will be localized at the light and electron microscope levels with labeled secondary antibody. The ciliated larva of the suctorian, which is not recognized as prey, also will be probed with monoclonal antibodies and lectins to determine its similarity to the adult suctorian and to prey. Suctorians are tentacle-bearing protozoa that feed upon other free- living, ciliated protozoa. Some microorganisms that swim against the tentacles of the suctorian are not captured and remain unharmed, while other ciliated protozoa are immediately captured, immobilized, and ingested. A variety of evidence suggests that receptors for prey are located on the tentacle and that these receptors recognize only certain components of the ciliary membrane of the prey. The goals of the proposed research are to understand the specificity of the receptors on the suctorian tentacle involved in recognizing prey vs non-prey, and to identify the proteins of the prey's ciliary membrane that are recognized. The results of this research will contribute to a new understanding of recognition phenomena in protozoa.